SBIR Phase II: Clean, Inexpensive, and Carbon-free Energy from a Toxic Waste

This Small Business Innovation Research (SBIR) Phase II project proposes to
commercialize a new process to recycle petroleum toxic wastes to clean and inexpensive
energy. This Phase II project will scale the improved process by modifying the company’s pilot
unit to incorporate the enhancements realized with the bench scale unit in Phase I. The basic
SuperATR is a non‐catalytic process that employs a cyclic flow reactor filled with an inert packed
bed. In the cyclic flow reactor, the direction of oxidizer/fuel mixture is periodically reversed
producing a high temperature volume. The modifications in the Phase I project effectively
raised the temperature even higher to make the reactor even more efficient.

The broader impacts of this research are that deteriorating qualities of oils and gases is forcing
the petroleum sector to incur very high cost for energy and waste disposal. For example, the
benign disposal of hydrogen sulfide costs oil refineries and natural gas processing plants $5
billion a year. Present technologies only permit extracting the sulfur content while wasting the
much more valuable hydrogen portion. In commercializing this technology, the value
propositions are but not limited to:
 Obtain 9 billion kilowatt hours of carbon‐free electricity and steam inexpensively.
 Lowering gasoline and diesel prices, even by 1 cent per gallon, would leave $2 billion in
the hands of Americans.
 Eliminate 5 million tons of greenhouse gas along with 1.5 million tons of acid rain
pollutants by helping refineries and natural gas plants exceed environmental standards.